Student Travel Support for the 51st Annual Gaseous Electronics Conference, Maui, Hawaii

9876372
Fleddermann
This grant is for support of students to attend the 1998 Gaseous Electronics Conference in Maui, Hawaii, October 19-23, 1998. This conference is the major source of cross fertilization between the atomic, molecular, and optical physics community, the low-energy plasma physics community and industry.